Scientist and Engineer Supply and Demand: A Review

In FY 1989-1990 this project will support a structured, first-cut assessment of prior experience with projection of supply and demand for scientists and engineers. A computerized literature search will be used to identify econometric and other projection studies of science/engineering labor markets. The project will assess the accuracy of past projections, reasons for error, how projections have varied and why, and lessons for future model building. Accounts will be given by field, degree, race/ethnicity, gender, and handicapped status to the extent that these have been taken up in earlier studies and that subsequent data for evaluation exist. This is the third of a series of structured literature reviews and assessments planned by the Employment Studies Group to provide a comprehensive assessment of what existing evidence says about the various factors that determine the supply and demand of scientists and engineers. Results will improve understanding of the science and engineering labor market pipeline and operation, identify gaps in evidence, and inform further research relevant to science and engineering personnel decision-makers.